Understanding the rigidity and reconfigurability of granular materials with faceted particles

NON-TECHNICAL SUMMARY:
Some granular materials are faceted particles with flat faces, sharp edges, and corners. These materials are common across industries relevant to energy and critical minerals. The shape of these particles affects how they pack and how they flow, but these properties are hard to predict because existing models are built for ideal particle shapes like spheres. This gap limits how efficiently these materials can be processed. This project will study how particle shape affects packing, flow, and fracture of faceted particles using both experiment and computation. The results will support important applications such as critical mineral processing, and 3D printing, which depend on understanding when and how individual particles break inside a dense packing. Finally, this project develops laboratory-scale advanced imaging tools that bring capabilities normally found at large national facilities into university labs, trains graduate and undergraduate students, and reaches the public through demonstrations at the Mechanical Engineering Open House at the University of Michigan.

TECHNICAL SUMMARY:
This project studies the relationships between packing structure, preparation history, and mechanical properties in dense assemblies of faceted granular particles and identifies kinetic pathways for reconfiguring these assemblies toward targeted properties, with relevance to critical mineral processing, energy storage, advanced manufacturing, and adaptive mechanical metamaterials. The work tests two hypotheses. First, the jamming threshold and scaling laws for properties such as elastic moduli can be established using graph-based descriptors of a contact network enriched by particle orientations, shapes, and contact types. Second, these properties can be reconfigured by manipulating contact statistics through combined cyclic loading and vibration, with the degree of reconfigurability set by particle-shape effects such as anisotropy and incompatibility. To test these hypotheses, the project combines X-ray micro-computed tomography and high-energy diffraction microscopy to resolve particle positions, orientations, contacts, and individual particle stresses in densely packed faceted particles under load. These measurements are integrated with shape-resolved discrete element method simulations calibrated by finite element analysis, extending the study across particle properties, system sizes, and loading modes. The experimental and simulation results are used for developing the graph-based descriptors, with particles as nodes and contacts as weighted edges, to establish the structural and jamming-related physics for faceted particles. Protocols combining shear and vibration are developed to control the preparation history of a given material to evolve its contact network, and reconfigurability is defined and assessed primarily using particles with varying shape anisotropy and incompatibility. Finally, this project develops laboratory-scale advanced imaging tools that bring capabilities normally found at large national facilities into university labs, trains graduate and undergraduate students, and reaches the public through outreach demonstrations at the Mechanical Engineering Open House at the University of Michigan.